CyberAI SFS: Building an AI-Powered Government Workforce

Texas A&M University proposes a CyberAI Scholarship for Service program to address the urgent national need for AI-capable cybersecurity professionals who can help protect U.S. critical infrastructure. Operational technology systems, which are important to U.S. critical infrastructure, continue to face significant cyberattacks. Texas A&M scholars will complete the new M.S. in Cybersecurity program with graduate AI coursework and gain preparation in areas such as intelligent agents, robotics, data mining, deep learning, and AI-enabled cyber defense. The program will produce graduates prepared for immediate government service and equipped to address increasingly complex cyber threats.

TAMU scholars will engage in research and hands-on training in areas such as AI for cyber defense, AI for securing industrial control systems, and intrusion detection for the power grid, using high-performance computing facilities. Research produced by TAMU CyberAI SFS scholars will contribute to next-generation AI-enabled cybersecurity technologies for defending critical infrastructure. The TAMU CyberAI program will strengthen the domestic CyberAI workforce by supporting student success through mentoring and retention initiatives and expanding pathways into federal agencies and national laboratories. By building a sustainable pipeline of CyberAI experts, the program will advance national security, protect critical infrastructure, and support the systems that underpin the nation’s economic prosperity, public safety, and resilience.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.